Improvements in CTD/Rosette Profiling, SIO/ODF

Program Summary: This is a joint proposal from PI's at SIO and at Woods Hole Oceanographic Institution (WHOI) to develop improved seawater profiling and sampling systems. Each of the three proposals in the joint package addresses a particular problem with current water sampling devices. In this proposal, the PI proposes a one-year development program to design, construct and test an improved water sampling bottle and an improved CTD controller. The proposed design changes for the water sampling bottles are necessary to reduce contamination of water samples and to permit more efficient water sampling and use of shiptime. Such improvements would benefit sampling programs to be conducted during the WOCE hydrographic cruises. //